Specific Compartmentalization of Proteins in Oogenesis

The developmental success of an early embryo depends fundamentally on the efficacy of oogenesis. Developing oocytes are geared almost entirely to the segregation and storage of newly synthesized macromolecules. Dr. Wessel will examine the ontogeny of two classes of storage organelles in oocytes of the sea urchin - vesicles storing extracellular matrix molecules that are destined for the embryonic blastocoel, and cortical granules that are exocytosed during the fertilization reaction. Both of these organelles originate early in oogenesis and their contents are each secreted, yet each organelle contains a discreet, non- overlapping population of proteins in distinct membrane bound vesicles. Dr. Wessel will examine the ontogeny of these organelles using cDNA and antibody probes that he has made to specific constituent proteins. The ultimate goal is to understand the mechanism of specific protein "stockpiling" that developing oocytes use to facilitate the commitment of their embryos to a program of rapid, independent development.